SGER: Support of Inaugural BME-IDEA Competition

0530111
Wellerstein
The project will support the inaugural BME-IDEA contest. The objective of the BME-IDEA competition is to identify and recognize innovative, commercially promising medical devices and technologies developed by entrepreneurial undergraduate and graduate student teams from across the country. The contest will provide the students with modest stipends to work on experiential learning opportunities associated with real-world biomedical innovations.